Purchase of a CCD Area Detector-Equipped Single Crystal X-ray Diffractometer

9626144 Kispert University of Alabama Tuscaloosa This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and the Academic Research and Infrastructure (ARI) Program will assist the Department of Chemistry at the University of Alabama Tuscaloosa acquire a CCD X-RAY Diffractometer. This equipment will enhance research in a number of areas including the following: (1) structural investigation of organic donor-acceptor solids and high-spin polyradical ions (2) characterization of unimolecular rectifiers and organic conductors (3) study of polyradical ions and other extractant interactions with metal ions (4) investigation of novel superacid catalysts, and (5) study of mutinuclear chromium-carboxylate assemblies. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.